Topology, Geometry and Physics

Abstract

Proposal: DMS-9803241
Principal Investigators: C. Taubes, R. Bott, and B. Mazur

Professor Bott's research will center on two topics. The first deals
with imbedding invariants based on integrals on configuration spaces
of points which were introduced by Witten, Axelrod-Singer and
Kontsevich. A particular aim is to understand the Casson invariant as
a configuration space integral, and to understand how these integrals
behave under surgery. The second topic aims to extend the
Duistermaat-Heckmann theorem to variationally complete orbits of
symmetric pairs. Professor Mazur's research centers on four projects.
The first studies the p-adic interpolation of modular eigenforms and
their L-functions. The second studies the question of the
representability of elements in the Shararevich-Tate group of elliptic
curves. The third studies the Euler systems of Kolyvagin in a general
motivic context. The fourth project will study certain "circle
method-type questions" related to the ABC conjecture. Professor Taubes
work centers on two topics. The first deals with the theory of
pseudo-holomorphic curves for the singular symplectic forms on
4-manifolds which arise as self-dual harmonic 2-forms. The regularity
of these curves will be analyzed, their use in defining obstructions
to symplectic form existence will be considered. The second project
studies the compactness question for various generalizations of the
Seiberg-Witten equations. The goal here is to determine whether these
generalizations can be used to obtain manifold invariants.

More colloquially, Professor Bott will study, first, a series of new
invariants which deal with the different ways in which a loop or
surface can be fitted into a higher dimensional space. These sorts of
questions have arisen recently from physics in some novel quantum
field theories. The second part of Professor Bott's project studies
the ways in which the symmetries of a space constrain its global
structure. Professor Mazur will be studying, first, the ABC
conjecture. This is a finiteness assertion that may govern the number
of solutions to a broad collection of equations. (For example, the
equations which occur in Fermat's last theorem.) Second, Professor
Mazur plans to study the Fourier coefficients of modular forms. This
is an area with results of use to quite a number of other branches of
mathematics (group theory, complex function theory, and, surprisingly,
theoretical physics.) Professor Taubes plans to study the behavior of
four dimensional spaces and to develop techniques to distinguish such
spaces from each other. For example, with time included, our universe
is 4-dimensional and its large scale topological structure is not
known. In this context, Professor Taubes' research concerns the
classification of those structures which are possible.